II-EN: A Real-Time Lens into Dark Space of the Internet

Network telescopes, which observe unsolicited Internet traffic sent to
unassigned address space, are one of the few types of instrumentation
that allow global visibility into a wide range of security-related events.
CAIDA researchers are expanding their telescope instrumentation to enable
researchers to exploit this unique global data source and improve our
understanding of security-related events such as large-scale attacks and
malware spread. This innovative shift in network monitoring addresses
sevearal pervasive challenges in network traffic research: collection
and storage, efficient curation, and privacy-protected sharing of large
volumes of data.

CAIDA researchers are developing a taxonomy of observed traffic, including
classes of DoS attacks, vulnerability scans, and malware spread. Such
a taxonomy facilitates real-time detection of events that merit more
comprehensive measurement and analysis and notification of interested
researchers. This project will also enable infrastructure for vetted
researchers to run analysis programs approximately one hour after data
collection. CAIDA has developed a privacy-sensitive data sharing framework
that integrates privacy-enhancing technology with proven and standard
privacy principles and obligations of data seekers and data providers.

The results of this project will contribute to developing early detection,
reaction and mitigation strategies supporting the global fight against
pervasive malware. Creation of educational data kits out of telescope
data samples will link this research to educational outcomes. Most
importantly, this project provides convenient remote access to a wealth
of data, computing resources and Internet expertise aimed at supporting
network security research.